SSC: "EMU/NSF Summer Environment Camp"

The Eastern Michigan University (EMU) Summer Environment Camp will address the critical Shortage of mathematicians, engineers, and scientists the United States has experienced in recent years and that is expected to worsen during the next two decades. This program will create opportunities for talented underrepresented minority students in the seventh and eighth grade to obtain mentoring and learning experiences that will encourage their enrollment in mathematics and science courses at the secondary and college levels. The disciplinary focus is on the environment- specifically, water, air and energy resources. The camp consists of two phases: a four-and-a-half week residential program and four Saturday Academies during the following school year. Fifty seventh-grade students from six public school systems in southeast Michigan will plan and conduct research projects; participate in explorations and field trips; ald discuss academic and career goals with university and pre-college faculty, graduate and undergraduate students and minority mentors from business and industry. This project ia an interdisciplinary partnership of EMU's science and mathematics faculty with student mentors, industry leaders, government agencies, school systems and parents. ***